Support for Speakers and Attendees at the 2000 Gordon Conference on Catalysis

Abstract

Proposal Title: Support for Speakers and Attendees at the 2000 Gordon Conference on Catalysis
Proposal Number: CTS-0086296
Principal Investigator: Robert Weber
Institution: Gordon Research Conferences

The Gordon Conference on Catalysis in 2000 will be held on June 25-30 in New London, New Hampshire. The conference will focus on several areas that are key to the fundamental understanding of catalytic systems: molecular level characterization of catalysts, quantitative descriptions of reaction pathways, novel materials and the accelerated development of catalysts, electrocatalysis, chiral catalysis, and the production of ultralow sulfur fuels. The themes and speakers are of interest to both academic and industrial communities. Current and future trends in heterogeneous catalysis will be the general theme. This grant will provide partial support for speakers, graduate students, post-doctoral students, and younger faculty. This support will permit a more comprehensive discussion and dissemination of the material.